Industry/University Cooperative Research Center for Design of Analog-Digital Integrated Circuits

9421603 Ringo The Industry/University Cooperative Research Center for Analog/Digital Integrated Circuits was started as a multi- university Center in 1989 with Washington State University and the University of Washington. Oregon State University became an additional research site in 1991. The State University of New York, Stoneybrook is being added as another research site of the Center. Since only two companies are currently being added to the Center in association with the new research site, the State University of New York - Stoneybrook is being added tot he Center as an affiliate. The Center's research agenda is being expanded by the new research site by studies to: 1) Develop new methods for the design of analog integrated filters; 2) Develop design and simulation tasks for emerging technologies; and 3) Investigate the analog behavior of high performance digital circuits. The Center's researchers are imminently qualified to perform the Center's research projects. The Center has been coordinated with Dr. Deborah Crawford, Solid State and Microstructures Program. Additional funding is provided for two supplemental awards to the Industry/University Cooperative Research Center for Design ofAnalog-Digital Integrated Circuits at Washington State University. The first is a Research Opportunity Award (ROA) to provide an opportunity for two Assistant Professors at Cogswell College North and Seattle University, both predominantly undergraduate instituttions, to work on research in the area of Simulation and Magnetic Modeling for Power Electronics. No review is required for a Research Opportunity Award, however, Dr. Vijay Vittal, Program Director, Electrical and Communication Systems provided an internal review. His comments were very favorable and strongly recommended support of the project. The research work performed through this award will professionally benefit everyone involved in the project; the two women faculty members, CDADIC researcher s, industrial sponsors, and the undergraduate students who will participate in the project. The second program provides support for two undergraduates through the Research Experiences for Undergraduate Research Program. These students will work with two Assistant Professors on the research project being supported through the Research Opportunity Award and through this experience will be provided a research experience which they otherwise would not have access to at their institution. The Program Manager recommends Washington State University be awarded $143,186 for the first year of a five-year continuing award. An additonal $50,000 is recommended for 24 months for an Researchy Opportunity Award and $10,000 for one year with funds provided by the Research Experiences for Undergraduates Program. Near the end of each 12-month period the Program Manager and/or the Division Director of the Engineering Education Centers Division will review the progress of the Center on a number of renewal criteria including the following: 1) the extent to which the industry/university interaction is developing; 2) the extent to which the support base is developing; and 3) the extent to which robust research program is developing. If the review is satisfactory, the Program Manager will recommend support for the next period of this continuing award.